The Role of Financial Conglomerates in the Growth and Development of Brazil

Although banks and other such institutions are included in much theoretical writing within the social sciences actual research on this topic is minimal. And yet banks are important centers of wealth, with considerable impact on the economic development of a country. The proposed research directly addresses the role of banks in Brazil, a country burdened by the crisis of debt and the problem of capital accumulation. Using data from variety of sources -- including archives, surveys, and case studies -- the project will examine the organization of financial institutions within Brazil, how they evolved over time and the implications of various organizational structures for economic development within the state. This research will provide a fuller understanding of the relations between economic and social forces by shedding light on a little understood institution: banks. Moreover, it will illuminate these connections within the context of a Third-World Latin America setting in which financial settings have taken on critical importance.